III: Small: Accurate Protein Threading via Tree-Decomposable Graph Modeling

This protein threading project at University of Georgia develops high throughput computer programs for accurate protein tertiary structure prediction based on a new conformational graph modeling of protein amino acid tertiary interactions. The modeling approach enables the following three novel, effective components together to achieve the project goal: (1) a very efficient sequence-structure alignment method that can incorporate sophisticated energy functions to improve fold recognition accuracy, (2) a simultaneous backbone prediction and side chain packing method to improve threading alignment accuracy, and (3) a semi-threading method to improve the accuracy of new structure prediction. This project also enriches the interdisciplinary education programs at University of Georgia, allowing computer science students to implement protein threading programs and visualization tools, and bioinformatics and biology students to develop threading methods, test data, and evaluate and disseminate results.

For further information see the project web page at
URL: http://www.uga.edu/RNA-Informatics/?p=projects